CAREER: A Wrist-Worn Neural Interface for Restoring a Sense of Touch to Partial Hand Amputees

Our sense of touch is a critical part of who we are and what we can do. Yet prosthetic hands do not restore a sense of touch, which limits dexterity and user experience. This research seeks to overcome this limitation for individuals with partial hand amputation, a large percentage among individuals with upper-limb loss. Partial hand loss is life-altering and can substantially reduce hand function, quality of life, and participation in work and community life. This CAREER award supports the development of next-generation bionic hands that can provide a sense of touch to individuals with partial hand loss through a noninvasive wrist-worn wearable. This wearable stimulates nerves at the wrist so that users feel sensations on their missing fingers. This research explores the fundamental properties of these evoked sensations and their potential to improve dexterity and user experience for individuals with amputated fingers. This work has the potential to help reduce the socioeconomic burden of disability and generate fundamental knowledge that could lead to more seamless interactions with assistive technology for all Americans. This award also supports new hands-on interdisciplinary education at the intersection of neuroscience and engineering to train a competitive workforce that helps ensure the United States remains a global leader in neurotechnology.

The goal of this project is to generate new fundamental knowledge regarding the psychometric properties, theoretical capabilities, functional benefits, and cognitive impact of transcutaneous electrical nerve stimulation at the wrist in healthy individuals and partial hand amputees. The research will systematically characterize the spatial resolution, intensity resolution, and stability of sensations evoked through nerve stimulation at the wrist. Evoked sensations will then be mapped to sensors on a bionic hand, and the functional and cognitive effects of sensory feedback will be quantified through a series of dexterous tasks requiring a coordinated interplay of motor actions and the sensory consequences of those actions. Together, these studies will establish foundational engineering and scientific principles that help guide the future design of wearable neurotechnology and sensorized partial hand prostheses. Additionally, this project will engage end-users and stakeholders to lay the foundation for future clinical translation and provide interdisciplinary training and outreach opportunities at the intersection of engineering and medicine.